CSBR: Ownership Transfer: Securing the future and accessibility of the Carl W. and Marian E. Rettenmeyer army ant guest collection

Army ants live in highly complex societies, accompanied by legions of tiny, intimate associates (primarily mites and insects). The study of these host/symbiont systems is precluded by a lack of access to basic information and knowledge about their biology, including physical collections. Resulting from 50 years of fieldwork, the Rettenmeyer Army Ant Guest Collection (AAGC) at the University of Connecticut (UConn) is an unparalleled resource for studying complex systems of social insects. The AAGC comprises more than two million specimens of New World army ants and their associated guests: Hundreds of species of mites, beetles, flies, wasps, springtails, and bristletails. Extensive field notes and numerous photographs complement the biological specimens, detailing intricacies of species interactions. This project will stabilize this collection, addressing critical issues. This project aims to address basic physical storage issues and to make all data publicly available via an on-line database so as to maximize its potential as a source of information on social behavior in insects. A two-part exhibit will engage the campus community. One part will highlight the Rettenmeyers' collecting activities. Across campus, the second part will include a large ant model complete with an array of mites attached all to scale.

This project is motivated by the recent donation of the Rettenmeyer Army Ant Guest Collection (AAGC) to the UConn Department of Ecology & Evolutionary Biology Biodiversity Research Collection Facility. The AAGC comprises more than 2 million specimens of New World army ants and their associated arthropods. It includes ca. 1,000 types representing 200 species, ca. 16,000 pinned specimens, ca. 5,000 microscope slides, more than 15,000 vials and jars, complemented by detailed field data and 5,000 Kodachrome transparencies. The collection is in dire need of stabilization - fluid levels are low, stoppers are deteriorating, specimens are overcrowded and disorganized. The project's two primary goals are specimen curation (e.g., replacing fluid, re-vialing, labeling, attaching barcodes, and reorganization) and establishing an on-line presence by modifying an existing MySQL database to accommodate the AAGC in four related Tables. Type specimens and colony exemplars will be image and linked to database records. Data will be shared with iDigBio (www.idigbio.org) and the Global Biodiversity Information Facility. High school students will work with graduate students to hone their writing and observation skills as they interpret slide labels to populate the database. Project results can be accessed online (biodiversity.uconn.edu/ant-guests/).